Engineering Initiation Award: Natural Convection Heat Transfer Enhancement in Grooved Channels

Natural convection is generally a weak mode of heat transfer. The thrust of this proposal is to alter the mechanisms by which heat is transferred in natural convection in order to enhance the rate of heat transfer. In a flow channel whose walls are grooved transverse to the flow direction, the flowing fluid is unable to follow the contour of the wall and separates from it. The separated flow which, prior to separation, had been adjacent to the wall, is called a shear layer. It is the destabilization of the shear layer that enhances the heat transfer. The proposed research will investigate techniques to destabilize the shear layer.